I/UCRC Cooperative Training and Education for Life-Long Learning

This is a planning grant to provide support to Arizona State University to study the feasibility of developing a new concept for bringing colleges and universities together with industry to significantly improve on their current separate lifelong learning efforts. This will be done through a two-pronged approach. The first involves the co-location, perhaps at ASU Research Park, of several industrial universities, Mesa Community College (MCC) and ASU engineering/business professional development, and training activities in a campus-like environment. This co-location concept has been strongly endorsed by Motorola University and Intel University, and a steering committee has been formed to formulate a detailed plan in physical planning, programming, organizational structure and cost for further actions by the joint venture partners. The second part of this two-pronged approach involves the establishment of a Cooperative Training and Education Center for Life-Long Learning using the NSF/IUCRC model. The purpose of this Center is to establish an educational research and development arm to the jointly operated infrastructure. Some specific examples of what the Center will be involved in are: developing short-courses and training sessions to meet the industry demand; producing new course material including software; and experimenting with new teaching paradigms and methodologies specific to life-long learning. Faculty of the Center will consist of faculty members of the industrial universities, a selected group of faculty at MCC and ASU and outside contracted experts. The Program Director recommends Arizona State University be awarded $25,000 ($12,500 co-funded by Engineering Education) for six months for this planning grant.